Workshop on a Basic Science Plan for Research in Environmental Geochemistry; May, 1994; Airlie, Virginia

9410120 Herman This award will support a workshop involving academic scientists and federal agency liaisons to plan a new initiative in environmental geochemistry. The initiative will provide earth scientists with a mechanism by which new ideas and new approaches to environmental studies are fostered. The research conducted under the proposal initiative is expected to increase our knowledge and understanding of basic mechanisms and processes, at many different scales of space and time, that comprise the broad topical field of environmental geochemistry. Such research is essential for the well-being of the global environment and to mitigate the environmental consequences of human activities.